Certain Aspects of Free Boundary Problems

Proposal DMS-0401179
PI: Arshak Petrosyan, Purdue University
Title: Certain aspects of free boundary problems

ABSTRACT

The aim of this proposal is to study certain free boundary problems
with the lack of "classical" properties such as the uniform
ellipticity (parabolicity) or the nonnegativity of
the solutions. More specifically, the PI proposes to study the
following questions that will help to understand the essence of the
new difficulties and the possible ways of their resolution:
1) the continuity of the derivatives in the obstacle problem for the
sub-Laplacian in the Heisenberg group; 2) the classification of
homogeneous global solutions of the obstacle problem for the
p-Laplacian in the plane; 3) uniform convergence of the level sets
in a degenerate phase-transition model; 4) smoothness of the free
boundary in a degenerate Bernoulli-type problem in the plane; and 5)
one-phase obstacle and Stefan type problems with no sign restrictions
on solutions. Some of the problems can be attacked by using recently
developed methods, while a revitalization of some older methods might
prove successful in other cases. Partial results as well as
empirical evidence (in some cases) are provided to support the expected
and conjectured results.

Free boundaries are apriori unknown sets, coming up in solutions of
partial differential equations and variational problems. Typical
examples are the interfaces and moving boundaries in problems on phase
transitions and fluid mechanics. Main questions of interest are the
regularity (smoothness) of free boundaries and their structure. Thanks
to the contributions by many mathematicians the theory of free
boundaries has developed over the last decades to a very deep and
beautiful part of mathematics. However, in a number of free
boundary problems that arise in applications, ranging from geometry
and optimal control to robotics and superconductivity, certain
traditional assumptions may break down. The aim of this
proposal is to understand which results could be carried over from the
classical theory of free boundaries to the case of those problems.